Improving Competency in Elementary Science Teaching

Darling-Hammond
1317068

This Stanford University project provides elementary teachers, grades 3-5 with a pedagogical framework and related resources for distinguishing quality science teaching. The study focuses on developing and testing a framework, the Quality Science Teaching Continuum (QSTC), to determine its capacity to serve as a potent formative and collaborative tool with which teachers can reflect on their science teaching practices and recognize student behaviors that are indicators of engagement and science learning. The project includes an intensive professional development (PD) that will accompany the instrument designed to develop teachers' understanding of (1) pedagogy, (2) science process and content, (3) community building, and (4) use of QSTC to improve classroom instruction and student engagement.

Teachers will be videotaped during classroom science instruction at various points in the two-year process, and the resulting digital library of teaching videos provides an ongoing reference resource for teachers and others when reflecting on their practice. The project provides a proof of concept and examines the use of a specific, formative, integrative instrument, the QSTC, within an immersive teacher professional development program.